Collaborative Research: FRG: Applications of Multiple Dirichlet Series to Analytic Number Theory

Abstract for Collaborative FRG proposals DMS- 0354534, DMS -0353964, DMS-0354662 and DMS-0354582 of Hoffstein, Bump Friedberg and Goldfeld

The object of this proposal is to continue to
develop the theory of multiple Dirichlet series
along a number of highly promising directions.
These include the formulation of a
classification theory via Dynkin diagrams and
metaplectic forms, analysis of natural
constructions as inner products of automorphic forms on GL(n),
and investigating examples coming from
Eisenstein series related to deformation theory
of universal elliptic curves. Many
applications are expected to the analysis of various families
of L-functions

The theory of L-functions of one complex variable is
central in modern number theory. Special values of
L-functions have provided links between such diverse
areas of mathematics as algebraic geometry, topology,
probability and statistics, the representation theory of
infinite dimensional Lie groups, and mathematical
physics. In contrast, the theory of L-functions of
several complex variables (multiple
Dirichlet series) is still in its infancy. A large part of the
foundational theory was developed
by the PI's and Postdocs of this proposal, who have
been collaborating in teams, over the
last twenty years. The accumulated scientific results,
combined with a mass sustained joint effort of the
PI's, now point to the possibility of major breakthroughs.
There is also an additional
training component. Workshops will be held each year
as well as short courses aimed at attracting graduate
students, postdocs, and
mathematicians in related fields. The motivation
will be to categorize and advertise
the major accessible problems in the field, to
map out progress made, and to prepare the
participants for research projects.